Establishment of a Nutrient Analysis Laboratory and Sample Archive at the Harvard Forest

9310833 Foster The Harvard Forest is a 1300-hectare field station in central New England. In addition to the resident science and technical staff of approximately 35, over 50 researchers from over a dozen institutions conduct a major portion of their field studies at the Harvard Forest. In the area of education the Harvard Forest activities include (1) serving as a host to 2-4 visiting faculty annually through the Bullard Fellowship Program in Forest Biology at Harvard University (2) sponsoring approximately 24 students annually as summer research assistants to faculty and science staff, (3) hosting more than 15 university courses for field studies, (4) convening numerous state, national, and international conferences in science and policy, and (5) educating more than 5000 visitors annually in the Fisher Museum of Forestry. Research at the Harvard Forest is integrated around the central theme of studying and dynamics of forest ecosystem as affected by natural and human disturbance processes. In recent years there have been much higher demands for laboratory facilities, offices, and equipment in the areas of biogeochemistry, atmosphere-biosphere interactions, and microbial ecology. Education-related demands on laboratory facilities have risen as both graduate student research and undergraduate research program have expanded. Beyond the need for expanded and improved laboratory facilities, there is the critical need to archive soil and plant tissue samples in a systematic and orderly fashion. Currently, samples collected at Harvard Forest are stored at various places. None of these locations have adequate archive facilities. Valuable samples have been discarded simply because storage space is unavailable. The project will support the development of a multi-user nutrient analysis and new offices in the current J.G. Torrey Laboratory and to construct a soil/plant tissue archive facility. Major acquisitions will include CHNS Analyzer, balances, drying ovens, grinder, fume hoods, muffle furnace, pH meter, work benches, and storage cabinets. The nutrient analysis facility will create 1048 ft2) will provide storage and electronic cataloging for over 32,000 samples.